CISE Research Resources: A Flexible Video Networking Infrastructure to Support Massively Scalable Information Flows

EIA-0130344
Wu-chi Feng
Oregon Graduate Institute

CISE Research Resources: A Flexible Video Networking Infrastructure to Support Massively Scalable Information Flows

This research project proposes the establishment of a flexible video networking testbed in the Department of Computer Science and Engineering at the Oregon Graduate Institute. The main purpose of this architecture is to facilitate experimental research in systems that support massively scalable information flows. Focus will be on four main tasks: (1) Scalable Video Distillation Architectures - providing mechanisms to support the aggregation of large numbers of video streams in a video sensor network; (2) Scalable Video Multicast Distribution Protocols - providing scalable mechanisms that support quality and rate adaptive video for multicast over overlay networks; (3) An Integrated Approach to Resource Management for Internet Applications - combining application-level knowledge with low-level networking to provide scalable Internet application architectures, and (4) A Video Archive - creating an extensive testset of video data for use within our experiments as well as for distribution of statistical and frame size information to the rest of the research community.